Engineering Research Equipment Grant: Low-Angle Laser Light-Scattering Photometer and HPLC Size Exclusion Chromatography System

This proposal requests funding for the purchase of a low-angle laser light-scattering (LALLS) photometer and a high performance liquid and size exclusion chromatography (HPLC-SEC) system. This equipment is to be used to determine molecular-thermodynamic parameters and experimental ternary polymer-polymer-water phase diagrams required to develop a predictive model for a promising new separation technique in biotechnology, i.e., two-phase aqueous polymer-polymer systems for selective extraction of biomolecules. The PIs are considered to be very well qualified to effectively utilize the proposed equipment. Funding of this proposal is being recommended and the costs are to be shared by the Interfacial, Transport and Thermodynamic Processes and the Biotechnology Programs of the Engineering Directorate within NSF, and the University of California at Berkeley. Biotechnology Program $ 50,932 Interfacial, Transport and $ 30,000 Thermodynamic Processes Program University of California at $ 40,466 Berkeley